An Electronic Classroom and Lab for Mathematics Instruction

Students are engaged in concept formulation, non-routine problem solving, and applications in the Enhanced Calculus being offered as an alternative to the standard calculus course. This new approach to calculus is made possible because of a classroom/ laboratory equipped with Macintosh II computers running Mathematica. The institution will contribute an amount equal to the award.